GP: IMPACT: Science, Technology, Engineering and Math Student Experiences Aboard Ships (STEMSEAS)

The science, technology, engineering and mathematics (STEM) workforce is crucial to the U.S. health and economy, yet retention rates in STEM fields are poor, and the Geoscience community in particular is faced with a looming workforce shortage. Moreover, the Geoscience community continues to lack the diversity of the population at large. The STEM Student Experiences Aboard Ships (STEMSEAS) project is a 1-year proof-of-concept initiative aimed at addressing three priorities: (1) increasing the number and diversity of students pursuing degrees and careers in geosciences; (2) preparing students for all possible career trajectories in the geosciences; and, (3) contributing to the evidence base for effective student engagement, learning and retention in STEM.

The STEMSEAS project is achieving these goals by taking advantage of unused berthing capacity available through the federally funded research vessel network, the University National Oceanographic Laboratory System (UNOLS), as ships transit between U.S. ports in preparation for their next scientific expedition. These short (~5-7 days) transits offer a mobile classroom setting where undergraduate non-STEM, undecided-STEM, and geoscience majors can be exposed to geoscience professional practice and career exploration. By partnering with UNOLS and campus "champions" at universities, including minority-serving institutions (MSIs) and historically black colleges and universities (HBCUs), the project is sending diverse cohorts of students to sea with a small team of geoscience faculty and mentors. Three cohorts (~10 undergraduate students each) are being recruited for this pilot study to document both the logistical feasibility and potential impact of the STEMSEAS model. While at sea, the students engage in a variety of hands-on activities that incorporate geoscience content, lab exercises, data collection/analysis, career exploration, and discussion/reflection. Upon completion of the transits, each participant is required to complete a post-transit project, which they present back at their home institution, write a short article about their experiences, and participate in post-transit teleconferences with other cohort members.

Application materials and evaluation surveys are providing data to assess the impact of the STEMSEAS project on student knowledge of and attitudes toward the geosciences and geoscience careers. The STEMSEAS project is designed to add to the evidence base regarding what kinds of experiences and interventions help to increase retention and persistence in geoscience-related majors, and what strategies are most effective at increasing the number and diversity of students entering the geoscience workforce pipeline. By creating innovative learning experiences on board charismatic research vessels, STEMSEAS is gathering data on the effectiveness of novel approaches for engaging students who may never have considered the geosciences as a field of study or career, students who are interested in the geosciences but are unsure of what direction to go, and STEM-interested students who may not have considered the specifics of the geosciences. Through these immersive experiences, STEMSEAS is exploring the effectiveness of short-term but intense learning activities.